Integrated Information Suite for Geology and Archeology

0215922
Wojtal

This Major Research Instrumentation grant provides funds to Oberlin College to purchase equipment that will enable the PIs to map, analyze, and visualize in three dimensions both mesoscopic geological structures and archeological sites as well as the geographic/geologic environment in which they occur. The equipment will include: (1) a Trimble 3600 total station, a Trimble GPS total station, two Trimble ProXRS backpack-style GPS receivers, and four Trimble Explorer hand-held GPS units. The PIs will use this equipment to map with high precision the surface topography of geological and archeological research sites and to locate data stations, geologic samples, and archeological artifacts. The PIs are faculty from three departments at Oberlin College, a private, four-year undergraduate liberal arts college. They will use the requested equipment to enhance their existing individual research projects in geology and archeology, to undertake new collaborative research at an archeological site in Italy, and to train research students in modern techniques for surveying, three-dimensional visualization, and three-dimensional analysis. The equipment will be stored in the Department of Geology, and PI Wojtal will assume primary responsibility for training, equipment maintenance, and the scheduling of equipment use.
***